Integration of NMR Spectroscopy Across the Undergraduate Curriculum

Chemistry (12)

This proposal incorporates NMR as an integral part of the instructional methodology of each upper division and laboratory course within the department. NMR spectroscopy is introduced to students starting in the first semester of organic chemistry and each subsequent course builds on this foundation of 1D and 2D NMR. The NMR is also used in undergraduate research projects, required of all majors. High school teachers and students are provided with experiences using NMR through a series of workshops and classroom experiments. Faculty and students from a neighboring college also have full access to the NMR facility. The goals of this proposal are evaluated with four methods: 1) administrating the ACS course exam for the final in each course in our curriculum, 2) evaluation of our seniors with the ETS senior exit exam, 3) monitoring successful completion of advanced degrees completed by our graduates, and 4) subjective evaluation using a tool developed by the University of Florida in 1999 that is specific to using NMR in the curriculum.